Mathematical Sciences: Analysis of Qualitative Data with Log-Linear Models

Log-linear models for qualitative data are usually analyzed by means of the large-sample approximations for maximum- likelihood and weighted-least-squares estimators. Computational problems have made the corresponding exact tests and confidence intervals difficult to use. Employing the Newton-Raphson algorithm for the computation and falling back on slightly less optimal procedures reduces the problems. The models are extended to qualitative data with random effects as well as data which is only approximately consistent with the model.